Tools for Understanding and Debugging Parallel Programs

This research involves two closely related approaches to debugging parallel programs, pre-execution static analysis of program source code and post-mortem trace analysis of an execution history. Pre- execution analysis has the advantage that all possible executions are explored. Unfortunately, in the worst case, this analysis may require all possible program states to be examined resulting in unacceptable complexity. However, techniques developed at UCSC have shown that, for many programs, program states can be examined in large groups rather than individually. In contrast, trace analysis algorithms developed at UCSC execute in polynomial time. They have the disadvantage that only errors associated with the input used to generate the trace can be detected. In addition to the refinement of these techniques, this project will investigate the combination of a single system that ameliorates the disadvantages of each technique.